Collision-induced Absorption in Gases: Wings of Spectral Band Shapes

This proposal calls for a modest amount of funds for travel between Austin, Texas and St. Petersburg, Russia to facilitate collaborative studies of the absorption in the far wings of simple gases in the presence of collisions.